Time-Domain Electromagnetic Wave Propagation in MultilayeredMedia

Recent progress in microelectronic circuit packaging technologies has begun to require a thorough understanding of time-domain electromagnetic wave propagation in multilayered media. Several issues in the theory and applications of the time-domain electromagnetic wave propagation in multilayered media will be addressed: (1) the applications of the double-deformation technique to transient radiation and coupling problems; (2) transient propagation in anisotropic media; (3) wave propagation along nonconventional transmission structures in integrated circuits; (4) signal distortion and electromagnetic scattering due to discontinuities in strip transmission lines; (5) crosstalk in three- dimensional integrated circuit packaging. Better physical interpretation can be sought for through the development of the double deformation technique, which is a wave-mode approach based on transform method. On the other hand, the direct time-domain formations such as the space-time domain integral equations, the method of characteristics, the finite-difference method, the transmission line matrix method help increase computation speed when early-time response is of main concern and will also be explored. Time domain analysis of electromagnetic wave propagation has gained much attention in place of frequency domain analysis because of various new applications. In very-large-scale integrated circuit design, multilayered structures are becoming more popular in light of their capability of achieving a more condensed package, yet the crosstalk problems caused by transient electromagnetic coupling have to be minimized. When activated with electromagnetic pulses, adjacent strips of transmission lines running in different directions or located at different heights can suffer from significant crosstalk. As the rise-time becomes shorter and the clock-rate higher, the circuit may be rendered inoperative because of excessive crosstalk. This research will focus on finding reliable and computationally efficient techniques to calculate the amount of crosstalk and radiation. One of the main goals will be to develop equivalent circuit models to facilitate computer-aided design.